Graph-Based Modeling

This proposal will extend initial research in developingtheoretical underpinnings and creating a practical demonstrationof a graph-based modeling system. A graph-based modeling systemrelies on attributed graphs to provide pictorial representationsof models, to be used both for an interface with decision modelusers and as a modeling language. There are many benefits of apictorial diagram approach compared to the normal text approachof other modeling languages. Such a tool for automating themodeling process should improve the resulting models, andsubsequently improve decisions made with the help of thosemodels.